US Participation in International High Energy Physics Conference; Blois, France, June 27 - July 3, 1999

9902074
Farrar
Dr. Farrar seeks funding, $9000, to support travel for US scientists to attend the BLOIS Conference in France.